Evolution of dispersal traits during a geographic range expansion

Many marine species are expanding into new regions, but it is still not well understood why some species spread rapidly while others do not. One key factor is how far offspring can disperse before settling into adult habitats, yet little is known about how these dispersal abilities evolve during range expansion. This project studies the owl limpet, a rocky shore gastropod that is currently expanding northward along the California coast, to determine how traits related to larval dispersal change as populations colonize new habitats. By combining laboratory experiments with modern genomic tools, this research identifies the biological mechanisms that influence species’ geographic distributions. This knowledge improves our understanding of how marine populations establish and persist in new environments, providing a scientific foundation for conserving coastal biodiversity and managing marine resources. This project trains undergraduate and graduate students in genomics and scientific communication, develops educational opportunities in data science, and increases public engagement through accessible outreach and science communication initiatives.

As environments change, many marine species are expanding their geographic distributions toward higher latitudes. However, the ecological and evolutionary mechanisms that determine the pace and extent of these range shifts remain poorly understood. Dispersal during the larval stage is a critical determinant of range expansion in marine organisms, yet whether dispersal traits evolve during expansion has rarely been tested in natural populations. This project uses the ongoing poleward expansion of the owl limpet (Lottia gigantea) along the California coast to test the hypothesis that evolution can rapidly alter dispersal traits at the leading edge of a range expansion, influencing the potential for continued geographic spread. The project integrates larval biology, quantitative genetics, and population genomics to (1) quantify variation in planktonic larval duration and maternal investment between core and expanding-edge populations; (2) identify the genetic basis of variation in larval dispersal traits; and (3) determine whether dispersal related traits have evolved through directional selection or spatial sorting across the species’ geographic range and over the past decade. By combining larval rearing experiments with genomic analyses, this project provides the first mechanistic test of how dispersal traits evolve during an ongoing marine range expansion and improves predictions of future range shifts. This project also develops genomic resources and analytical approaches that can be applied broadly to studies of adaptation, dispersal, and range dynamics in marine and other natural systems.